Computational Methods for Heteroepitaxial Growth, Grain Boundary Motion, and High Frequency Wave Propagation

This proposal involves three projects. The first concerns modeling and
efficient simulation of heteroepitaxial growth using kinetic Monte Carlo
and will build from prior NSF support which resulted in the
development of a Fourier multigrid method for the fast solution of
discrete elastic equations for complex geometries. This work will be
extended to develop methods for obtaining inexpensive upper bonds on
rates, the use of local computations for elastic equations, and the inclusion of
intermixing of multiple species. The second project involves the
simulation of grain boundary motion in two and three dimensions using
a recently developed multiphase variational level set framework which
allows one to systematically deduce level set equations for a network of
grains moving under curvature flow. We plan to extend this formulation to
allow the simulation of thousands of seeds by using only a few level set
functions. The efficient computation of high frequency wave propagation
and the semi-classical limit of the Schrodinger equation is the third
project. The proposed algorithm is based on the observation that most of
the time, in these limiting regimes, the solutions are very localized
in the wavenumber domain. This can be exploited by solving the equations in this
domain using a fast local convolution. It is planned to update the solutions
by the computation of the matrix exponential using a Krylov subspace
approach.

Each of the proposed projects has the potential to have a significant impact
on problems that are both fundamental and technologically important.
Heteroepitaxial growth is scientifically interesting since it has effects
on both nanoscales and mesoscales. It is technologically relevant since
quantum dot materials are made in this way. Our proposed techniques will
greatly increase the simulation speed thereby facilitating model development.
The study of grain boundary motion using curvature flow is a classic problem
in applied and computational mathematics which has importance in material s
cience. Since there are no robust simulations of a large number grains in
three dimensions the proposed project should have significant impact.
The efficient computation of high frequency wave propagation has important
facets ranging from antenna design to seismic sensing. On the other hand,
fast simulation of the semi-classical limit of the Schrodinger equation
could provide deeper insight into chemical reaction dynamics,
molecular-surface scattering, and photodissociation, for example.